Industry/University Cooperative Research Center for Glass Research

9420696 Pye The Alfred University's Industry/University Cooperative Research Center for Glass Research is being funded for one year with a "Self-Sufficient Partnership for Research" Program award. The Center continues to meet the renewal criteria of the Industry/University Cooperative Research Centers Program. The Center's researchers are well qualified to perform the research of the Center's projects. The Program Manager recommends Alfred University be awarded $30,000 for one year.